"ZOOM!" ( A Planning Grant)

9554478 Sullivan ABSTRACT: ZOOM! is the Emmy Award-winning series for 8 to 11 year olds that ran on PBS for six years in the 1970's. WGBH, where the series was produced, is hoping to update the series and produce new programs for national broadcast. This planning grant will enable WGBH to make planning for math and science education an integral part of the piloting phase the station is about to enter. Specific activities to be conducted with the NSF support include such things as: o Holding a series of science and math brainstorming sessions, o Revamping the series advisory committee by adding more people with expertise in math, science, and elementary education, o Hiring a science and mathematics content director, o Consulting with outreach partners to develop ways to extend the series' impact beyond the television audience, o Refining the science and mathematics goals, o Developing methods to integrate science and math into the programs, o Producing sample math/science segments, using different approaches o Testing the sample segments for audience effectiveness.